Fluid-Grain Interactions in Coastal Sand Transport (A Workshop) March 10-14, 1993, Amelia Island Plantation, FLUSA

Under partial funding from NSF, a workshop is to be held on the topic of small scale fluid-sediment interactions governing coastal sand transport. The conference will be in Florida, on March 10-14, 1993, and its title is: "Fluid-Grain Interactions in Coastal Sand Transport". This specialty conference is modeled on a prior one on Geophysical Grain Flows in July of 1989, and aims to bring together an appropriate mix of interdisciplinary investigators. Coastal sand transport governs coastal erosion during storms, it is of great concern economically, and remedial measures are still based largely on empiricism rather than fundamental understanding. The conference is aimed at improving this situation.